Chapman Conference on Auroral Plasma Dynamics

This grant is for support of students student travel to a Chapman Conference on Auroral Plasma Dynamics to be held in Minneapolis, Minnesota on October 21-25, 1991. Chapman Conferences are topical meetings sponsored by the American Geophysical Union and are designed to promote opportunities for interaction not normally available in large meetings. This conference examine the state of the art of auroral plasma physics in light of recent sounding rocket and satellite observations of the auroral zone. *** //